Zeolite Encaged Transition Metal-Proton Adducts Catalytic, Selectivity and Dispersion Stability

9221841 Wolfgang Sachtler This is a systematic study of metal-proton adducts in zeolites, including the role of these adducts in modifying the catalytic characteristics of metal and in anchoring metal clusters to the zeolite. One issue addressed is whether the enhanced catalytic activity of transition metals in proton-containing zeolites is due to the electron deficiency of the metal particles or to the chemical participation of adduct protons in the catalytic reaction. The emphasis in this effort is on rhodium clusters although additional work on palladium and platinum is also included. The rates of hydrocarbon conversion reactions on metals and metal- proton adducts are compared with the electron deficiency of the metals as determined by photoelectron spectroscopy. Other characterization techniques used include X-ray absorption methods (using synchrotron radiation), electron microscopy, infrared spectroscopy, nuclear magnetic resonance, temperature-programmed mass spectrometric methods, and isotopic exchange. The effects of alcohols and amines on metal sintering in zeolites is also study. Zeolites studied include Y, L, and ZSM-5. The catalyst systems under study here are important in petroleum refining and in the production of monomers for the fiber and plastics industries. The effects uncovered here could dramatically influence the performance or lifetimes of these systems.